CAREER: Genetics of Pattern Formation in the Arabidopsis Shoot Apex

The shoot apical meristem (SAM) is the ultimate source of all above ground
tissues of the plant. The SAM gives rise to leaves, stems, flowers, and
axillary buds, and is responsible for the pattern of the shoot. Despite
the crucial role of the shoot apical meristem in plant development, almost
nothing is known about the mechanisms by which organs are produced from the
flanks of this structure. Using a novel mutagenesis system, enhancer trap
(ET) and gene trap (GT) transposant lines that exhibit GUS reporter gene
expression in discrete domains in the SAM or surrounding cells have been
identified. Two transposant lines show GUS expression specific to the SAM.
The genes controlling GUS expression in these lines could play a role in
SAM identity and/or function. Eight transposant lines have been identified
that show GUS expression in discrete, novel domains surrounding the SAM.
These expression patterns do not appear to reflect anatomical or
morphological features, but define new domains based on gene expression.
The genes controlling GUS expression in these lines may function to define
boundaries during organ initiation. These lines were identified based on
GUS expression patterns, and the genes controlling that expression are of
unknown function. A series of analyses will be performed in order to begin
to understand the role that these genes play in meristem function and
organogenesis. The genes will be cloned and sequenced, and a detailed
characterization of their expression patterns will be performed. In order
to identify genetic relationships between genes that function in the
meristem, GUS expression in our gene trap and enhancer trap lines will be
examined in backgrounds containing mutations that affect meristem function,
and in transgenic plants that ectopically express selected meristem genes.

The educational component of this proposal is geared towards training
undergraduate and graduate students and postdoctoral researchers in modern
methods in Arabidopsis research. Arabidopsis thaliana is a model organism
for studies in plant biology. The many available Arabidopsis resources are
of use to all plant biology researchers. In order for plant biology
researchers to be able to take full advantage of the Arabidopsis resources
that are available, it is important that they be familiar with the standard
methods used in Arabidopsis research. To this end, an intensive laboratory
course will be developed, that will teach standard Arabidopsis methods.
Materials from the PI's research program will be used for the laboratories.
In addition, the PI will serve as a mentor to graduate students and
postdoctoral researchers who will carry out the research component of this
proposal.